Mathematical Sciences: Dynamical Systems Program

This project provides partial support for a special research year in dynamical programs during 1988-89 at the Institute for Advanced Study at Princeton, New Jersey. The program will also be supported by the Institute's endowments and by the Department of Energy. The special year will bring together physicists and mathematicians who will focus on important problems in dynamical systems. The analysis and description of the chaotic behavior for uniformly hyperbolic systems marks one of the fundamental achievements in dynamical systems. However, there are many simple physical models of fluid flow, plasma physics, and celestial mechanics, which are not uniformly hyperbolic. In these cases little is known about chaotic behavior. One of the goals of the Institute's program in dynamical systems is to establish chaotic behavior for such models.